CAREER: Formal Methods in VLSI System Design

This is research is on formal verification and logic synthesis of VLSI designs. In the verification area, heuristics for verification of large, heterogeneous, hierarchical designs, are being explored. These include: property specific design reduction, use of symmetries, coverage directed simulation, and hierarchical verification. In addition, methods to verify gate-level designs containing blaak boxes, i.e. components whose functionality is arbitrary are being developed. In the synthesis area, methodologies for hardware-software codesign and core based design methodologies are being investigated. Appropriate logics for specifying and modeling components which may contain abstract, heterogeneous designs, embodying asynchrony and complex datatypes are being developed. From these logics, the project is building a theory and practice for formal analysis and synthesis of such designs.